Improving Articulation for Workforce Development

Cataret Community College and North Carolina State University are leading a collaborative effort for articulation between a two-year college and a four-year institution for technician education and teacher preparation. The three goals are (1) improving curricular coherence between community college and upper division courses of study, (2) increasing the retention and success of community college students after transfer, and (3) providing comprehensive professional development activities for university, community college, and secondary school science and mathematics faculty.